International Symposium on Molecular Breeding of Forage and Turf to be held in Dallas, TX, May 18-22, 2003

The Samuel Roberts Noble Foundation, Inc. and Texas A&M University are hosting the
International Symposium on Molecular Breeding of Forage and Turf, May 18-22, 2003 in
Dallas, Texas. This conference will focus exclusively on the theme of cultivar improvement for
forage and turf through the application of conventional plant breeding and molecular methods.

Forages provide the basis for environmentally sustainable production of animal products
throughout the world, and turf serves an important environmental and service role in society.
The economic impact of forages and turfgrasses is substantial. Cultivar improvement using
conventional selection techniques has barely kept pace with increased production requirements.
Molecular technologies offer powerful tools to enhance the process of cultivar improvement,
although the development of such technology for forage and turf breeding has been slow relative
to other major crops. Reasons for this slower than desired progress include: the complicated
nature of polyploid genetics; the perennial nature of forage and turf crops; and a lack of financial
resources to support applied research.

This conference will facilitate the assembly of 250-400 participants from academia and industry,
representing such diverse professional interests as plant breeding, agronomy, ruminant nutrition,
plant genetic resources, intellectual property rights, genomics, transformation, and
bioinformatics. The selected speakers are experts in their respective field, and each has
committed to attend. Thus, this conference will provide an otherwise unavailable opportunity for
plant breeders and molecular scientists in the field of forage and turf improvement to come
together for the purpose of exchanging information and ideas, learning the latest developments,
and forming multidisciplinary collaborations. It is anticipated that this conference will facilitate
the advancement of current and future cultivar development in the United States and as well as
developing and developed countries.

Efforts in conference recruitment will seek to draw critical new thoughts into this field through
the solicitation of members of historically underrepresented groups, young scientists (including
post-doctoral fellows), and graduate students. The introduction of new ideas to this discipline is
beneficial and necessary, and the exposure of young scientists to this field will desirably
contribute to cultivar improvement for forage and turf for decades to come.

A summary of the conference, including papers from invited speakers and selected oral
presentations, will be compiled in a comprehensive printed proceeding, entitled inMolecular
Breeding of Forage and Turf.ln This proceeding will be published by Kluwer Academic
Publishers. This proceeding will be the principal means used to perpetuate the meeting and its
discussions.